CAREER: Development of Geostatistical Data Assimilation Tools for Water Quality Monitoring

Michalak, Anna M.
University of Michigan Ann Arbor
Proposal Number: 0644648

CAREER: Development of Geostatistical Data Assimilation Tools for Water Quality Monitoring

In a time when anyone can check weather forecasts online to know whether they should plan a picnic for the upcoming weekend without the risk of rain, why is it not possible to log on to check whether the water at the local beach is expected to be free from e-coli on that same day? The development of water quality forecasting systems is essential to long-term sustainable water resource management. In anticipation of this goal, new tools are needed to merge water quality data in statistically rigorous manner while making optimal use of the information provided by the available measurements. Unlike weather monitoring and forecasting, water quality assessment will always suffer from a relative sparsity of data due to the difficulty and expense associated with data collection. As a result, a probabilistic framework is essential to the success of any water quality prediction framework, because the impact of the uncertainty associated with sampled water-quality related parameters needs to be taken into account throughout the analysis.
A significant gap in knowledge preventing the implementation of a probabilistic water quality forecasting framework is the lack of methods for assimilating the disparate types of data in a water quality monitoring network. If a data-driven statistical description of the distribution of water-quality-related parameters could be obtained, then this information, once coupled to numerical models of water flow, transport, and chemical and biological interactions, could form the basis of a water quality forecasting system. The assimilation of spatial data into numerical models brings about a number of statistical problems that fall naturally into the realm of geostatistics. The main research goal of this project is to develop the statistical and numerical tools needed to make optimal use of sparse and imperfect water quality monitoring data, by overcoming basic limitations associated with their analysis, such as physical constraints, support and scaling issues, uncertainty assessment, and computational issues. These research goals are closely connected with the educational plan and broader impacts of this project, which center on the broad dissemination of research results to a multidisciplinary audience, the development of innovative educational materials, and the strong emphasis on the recruitment and retention of women in science and engineering.
Intellectual merit: The research objectives of this project center on novel statistically rigorous tools for
making optimal use of limited water quality monitoring data, through innovative use of auxiliary information. our specific features typical of water quality data will be addressed. (1) Geostatistical Markov chain Monte Carlo geostatistical tools will be developed for incorporating known physical constraints and assessing their impact on water quality parameter distributions. (2) Available data often have different physical scales, making datasets incompatible with one another even if they are measuring the same quantity. This project will develop tools for geostatistical downscaling applicable to water quality and related data. (3) To deal with large volumes, types and sources of water quality data, a Kalman filtering and smoothing statistical framework will be built for sequentially updating estimates of water quality parameter distributions. (4) Tools for merging multiple data streams will be developed, building on results from the second and third objectives. Field data will be used to test and validate the individual tools developed as part of these first four objectives. (5) In the last phase of the project, the developed statistical tools will be applied concurrently to a pilot field study.